Presidential Young Investigator Award: Function, Form, and Fabrication Relationships in Design

A design can be described in a number of different contexts or languages. Typically, an engineer describes a product in terms of a set of performance specifications and constraints. These constitute a functional description of the product. The mechanical designer or draftsman uses a set of drawings to describe the form of the product. The manufacturing engineer uses a process sheet to describe the product in terms of the means for fabrication. The design task is to specify a form of the product to best satisfy constraints or objectives on function and fabrication. The relationships among function, form, and fabrication are studied. These relationships are the basis for design decisions and are essential when considering design scaling, design modifications to accommodate restrictions on materials, machinery, or tooling or in the consideration of standards and tolerancing. Currently, these relationships are poorly understood. Without a better understanding, designers will continue to use empiricism and heuristics to design.